Interdisciplinary Incorporation of Fluorescence Spectroscopy into the Upper Level Undergraduate Laboratories

Chemistry (12) This project is creating an interdisciplinary physical chemistry laboratory curriculum in which static and dynamic fluorescence techniques play an integral role. A spectrofluorometer and a laser-based fluorescence lifetime spectrometer are being purchased to incorporate these techniques in various laboratory courses. A biophysical chemistry class with an associated laboratory is being created in which students apply physical chemistry concepts to biological and pharmaceutical systems. Laser pulse-based experiments are also being incorporated into the physical chemistry sequence and analytical chemistry courses to expose majors to interdisciplinary topics involving macromolecules using fluorescence techniques. Laboratory experiments taken from the research literature that range in scope from an investigation of the thermodynamics of beta-cyclodextrin inclusion complexes to the measurement of fluorescent lifetimes of biologically relevant inorganic complexes are being adapted and implemented for use in the curriculum.